Molecular Biology of Moth Phermone Biosynthetic Pathways

This project aims to characterize the 11 desaturases of the cabbage looper moth. Specifically, the DNA sequence of the gene for this enzyme will be determined and compared with similar sequences isolated from desaturase genes in other moth species. It is intended subsequently to extend this work to examine the 10 desaturases in primitive lepidoptera and then to move on to other genes that encode other enzymes involved in pheromone biosynthesis. Sex pheromones are chemical compounds that play a crucial role in insect reproduction. Major components of these pheromones are synthesized in female sex pheromone glands. In this research the principal investigators build on detailed knowledge of pheromone biochemistry by addressing the structure and regulation of the genes encoding these enzymes. The work employs new techniques of molecular biology and should considerably broaden our present horizons about the pheromone communication system so as to provide a basis for gene manipulation in connection with novel insect control strategies.***//